Ground Based Measurements of Nitrogen Oxides as Part of the Pacific Exploratory Mission-West (PEM-WEST) Program

The Pacific Exploratory MIssion-West (PEM-WEST) is an international program aimed at understanding tropospheric ozone production and nitrogen oxide and hydrocarbon pre-cursors downstream of a major anthropogenic source region. This mission will be conducted in the western Pacific region during the summer/fall of 1991. Both ground-based and aircraft platforms are expected to make important scientific contributions. The longer temporal scale of the ground-based measurements will complement the short term, greater areal coverage of the aircraft measurements. The PI proposes to conduct measurements of NO and NOy at one of the PEM-WEST intensive ground based stations for a period of six weeks. These measurements are proposed to contribute to the overall mission objectives to evaluate ozone photochemical production and loss rates as a function of altitude and geographic position, to examine transport fluxes and identify Asian source regions of advected ozone and ozone precursors, and to conduct model studies of OH mixing ratios over the western Pacific from observations of O3, CH4, CO, NOx, and NMHC.